Estimation and Identification of Nonlinear Systems

9970998
Krener

This research project focuses on the estimation of states and parameters of
nonlinear systems using nonlinear and possibly noisy observations. The
first question addressed is the existence and convergence of nonlinear
observers using a generalization of Lyapunov functions. We also address
the development of efficient computational schemes for nonlinear filtering
and smoothing. The other half of the project is to develop effective
parameter estimation schemes for nonlinear systems, particularly, systems
with polynomial nonlinearities. We will focus on identifying systems
within some model class such as the feedback linearizable systems. We
shall use the properties particular to nonlinear systems such as the
presence of bifurcations and harmonic interactions to assist in their
identification.

Throughout science and engineering, models of dynamical systems are
used to describe the evolution of real world processes. Over small
excursions, linear models can be quite accurate but over larger motions
one generally must rely on nonlinear models. The estimation of the state
of a linear system from linear observations is a well developed area and
effective and computationally feasible methods are well-known. But the
theory and methodology for estimating the state of a nonlinear system
while quite extensive is not completely satisfactory. There do exist
globally convergent, computationally feasible techniques for most
nonlinear systems. Similarly the identification of the parameters of a
linear system is a mature field but the identification of the parameters of a
nonlinear system is much less developed. We are proposing research in
estimating the state and identifying the parameters of nonlinear systems
using a variety of new methods that show considerable promise.